SBIR Phase I: Beam Steering Full Duplex Wireless Systems

The broader impact/commercial potential of this project is to enable the efficient use of wireless
spectrum. Over the last decade, the world has seen a sharp increase in the number and diversity
of mobile devices. With this surge in mobile devices, access to spectrum has become an
overarching issue impacting the everyday life of citizens. The demand is expected to grow
exponentially in the coming years, with the rapid adoption of the Internet of Things (IoT) linking
everything we interact with in daily life. The technology developed under this project will allow
communication devices to listen and broadcast simultaneously, on the same frequency, thus
effectively doubling spectrum utilization by operating in Full Duplex (FD) mode. By improving
spectral efficiency and simplifying frequency planning, the results from this project will enable
newer paradigms for the rapid design, development and deployment of mobile devices. Society
as a whole will benefit from the increased array of applications enabled by robust, spectrally
efficient communication devices. Furthermore, valuable spectrum assets will be released and can
be redirected to create new opportunities for growth.

This Small Business Innovation Research Phase I project will demonstrate a practical Full-duplex
communication system prototype. The goal of the project is to develop a functional prototype
showing the ability of fast cancellation that enables reliable full duplex operation at transmit
powers suitable for outdoor deployment. While Full Duplex has been shown to be achievable
under static channel conditions, maintaining the desired isolation between transmit and receive
path in a dynamic channel is difficult, mainly due to the high level of reflected power into the
radio system that can limit its performance. By deploying novel and efficient cancellation
methodologies the prototype will be able to track and compensate for moving targets as they
appear in the radiation space of the FD system. Innovative co-designed spatial, analog and digital
approaches will be used to converge on the optimal parameters for cancellation, while ensuring
a rapid response time. All proposed algorithms under this project will be tested on a real-time FD
prototype system, under realistic wireless channel condition, to ensure that practical issues are
accounted for.